Robust Output Sensitive Algorithms for Subanalytic Geometry

The investigator aims to complete the nascent theory of
output-sensitive algorithms in real algebraic geometry.
Output-sensitive in this context means that the complexity of the
underlying algorithm depends mainly on intrinsic geometric
parameters, e.g., the number of connected components of the
underlying solution set, as opposed to extrinsic parameters like
the degrees of the input polynomials. Such algorithms are faster
than the traditional methods of computational algebra by a factor
exponential in the dimension, but have so far been discovered
only in various isolated contexts. So a unified algorithmic
approach has a broad impact. Furthermore, the underlying
approach takes numerical conditioning into account from the
outset, thus providing algorithms that are certifiably precise
even when applied to approximate data. Another novelty is that
the underlying theory applies in the even broader arena of real
and p-adic analytic functions. The algorithmic aspects of p-adic
analytic functions are almost completely unexplored, so a
secondary focus of this project is to elaborate and apply this
new theory to equation-solving over finite fields and motivic
integration.
The investigator combines advanced techniques from numerical
analysis and algebraic geometry to provide a new approach to a
fundamental problem occuring in many applications: solving
analytic inequalities. For example, finding the optimal
allocation of resources in a large organization (e.g., an army,
an airline, or a large business) has long been known to reduce to
solving linear inequalities. From a different direction, it is
known that the complexity of certain neural net architectures
(which are useful in training automated bomb-sniffers and pattern
recognition systems) depends critically on understanding the
solutions of nonlinear polynomial inequalities. Both these
examples are special cases of analytic inequalities, and this
project provides new algorithms for their solution that are
magnitudes faster than current algorithms. Furthermore, these
new algorithms provide certifiably precise solutions --- a
feature which is especially important when facing uncertain
physical data. Another novel aspect is the principal
investigator's recent discovery that the underlying techniques
apply to an even broader context, which can provide new solutions
to many problems in the design of cryptosystems.